Symposium on Systems, Control and Networks. The Workshop will be held at University of California, Berkeley on June 5-7, 2005.

The Symposium on Systems, Control and Networks (SSCN) will be held on June 5-7, 2005 at
the University of California, Berkeley and the Claremont Resort Hotel, also in Berkeley.
The conference, chaired by Professor Eyad Abed (University of Maryland, College Park) will
bring leading researchers and practitioners from academics, industry, and government
agencies to interact on the latest advances in systems, control, and networks, and sensor
networks. SSCN will bring together leading researchers in the field to assess the current
state of research and areas for future research and application. Participation is open and
the Symposium has been announced in important conference and in relevant electronic
media.
SSCN draws upon many disciplines, including system theory, control theory, computer and
communication networks, signal processing, information and coding theory, networking and
protocols, economic and gaming analysis, distributed algorithms, and wireless
communications. A total of approximately 250 attendees are expected to participate in
this conference.
A budget of $10,000 is requested to support this conference. The funds will be used to
partially pay for travel expenses for some of the attendees who do not have other
resources to support their participation in this very unique meeting.